Quantitative Visualization of Convective Heat and Mass Transfer in Complex Internal Flow

ABSTRACT Georgiadis The proposers plan to investigate complex laminar flows involving chaotic stirring with applications in porous heat exchangers and screw extruders. A lattice-Boltzman numerical technique will complement experimental measurements using magnetic resonance imaging to produce a fundamental understanding of the character of the flow.